Factors Behind the Fall in China's Energy Intensity

Energy consumption usually increases at a faster rate than does economic output in developing nations, because almost all major changes associated with economic development (industrialization, increases in the capital-to-labor ratio, substitution of commercial energy for traditional energy, the construction of modern infrastructure, mechanization, and urbanization) require more intensive use of energy. Economic development in China in the 1980s did not follow this pattern, however, as energy intensity actually declined by almost 30 percent from 1980 to 1988. This project will explore this decline in China's energy intensity and will identify those factors that were responsible for the reduction. Energy will be examined as an intermediate input in the production of goods and services, and changes in energy intensity will be examined within the framework of both final demands and production technologies and functions. Structural-decomposition analytic techniques will be used to analyze data from a range of different sources that document Chinese economic activity over the study period, thereby forming the basis for merging quantitative modelling approaches at macro and micro levels with qualitative assessments based on case studies, site visits, and personal interviews. This project will enhance understandings about this important topic in a number of ways. The database used for many of the analyses will bring together relevant information from a diverse range of sources, thereby facilitating research by others. Knowledge of the relationships between economic development and energy use in China will be improved, but these insights also will provide new perspectives for other nations. Of special utility will be new knowledge of ways that national and regional policymakers might be able to foster energy conservation while simultaneously spurring economic development.